The Development and Application of Strategies for the Preparation of Designed Supramolecular Structures

This award to Professors Joseph Lauher and Frank Fowler at SUNY, Stony Brook, is supported by the Advanced Materials and Processing Program in the Chemistry Division. The focus of the research will be the application of solid state host-guest interactions for the formation of macromolecular networks with controlled intermolecular interactions, orientations and distances. Fundamental principles and strategies for the preparation of supramolecular networks using solid state topochemical polymerizations will be studied. Polymerizations of dienes, halodiactylenes, tetraacetylenes and their analogues will be used to develop robust two dimensional conjugated polymers, including channeled solids, open molecular networks and nanotubes with unique optical and electronic properties.
Polymers with controlled networks and pore sizes will be prepared under this research. Because of their unique structure and orientation, these polymer networks and nanotubes will have optical and electronic properties not observed in other materials. In addition, robust nature of the polymer matrix and architecture make them suitable for environmentally stable applications in sensors and electronic devices.